Coherence and Optical Properties of a Bose-Einstein Condensate

***
9801888
Javanainen
The topics studied include the damping of excitations in Bose-Einstein condensates, the coherence properties of Bose condensates and atom lasers, possible superfluidity of a Bose condensate forced into a toroidal configuration and the interaction of a Bose condensate with light and with a degenerate Fermi gas. The goal is to formulate new concepts that shape the physics of Bose-Einstein condensation in trapped alkali gases.
***